Mathematical Sciences: Representation Theory and AutomorphicForms

Professor Speh will continue her research with J. Rohlfs concerning Lefschetz numbers of automorphisms of arithmetic groups. She plans to find a stabilization (in the sense of Langlands) of the Lefschetz numbers and then use this to find an expression for the Lefschetz number using the Arthur-Selberg trace formulas. Professor Barbasch will continue his work on unipotent representations of real reductive groups, their character theory, and their role in the classification of the unitary dual. He will be involved in several projects: (i) with J. Adams he will study the dual reductive pair correspondence for the case of unipotent representations, (ii) with A. Moy he will study the unitary dual for unramified representations, and (iii) with S. Evens he will study relations between the geometry of orbits, similar Shubert varieties, and multiplicities in finite dimensional representations. Group theory is basically the theory of symmetry. To take a simple example, when the system in question is invariant under a change in the position of the origin of space, the group of translations naturally arises. While groups are abstract objects, particular situations demand concrete realizations or "representations" of the symmetry group. The projects of Professors Speh and Barbasch will contribute to our understanding of group representations.